Acquisition of an Automated Oligonucleotide Synthesizer

The proposal requests funds to purchase a DNA synthesizer and printer, spectrophotometer, and fraction collector. The instrumentation will be located in a university-wide service laboratory that will operate on a fee basis and will give focus to research in molecular biology/biotechnology. The instrumentation will be of particular benefit to researchers working on the expression of genes during sea urchin embryonic development and the role of the gene products in the developmental processes, measurement of changes of nuclear DNA in evolution, erythropoietic system, the role of a transposable ement during evolution of Hawaiian Drosophila, structure/function aspects of proteins and their genes, molecular biology of development of higher plants and fungi, genome organization and DNA sequence evolution, and role of toxins produced by plant pathogenic bacteria in the pathogenesis of their host plants. The need for the instrumentation is critical, and the quality of research warrants support.